1994 Workshop on Cyclostationary Signals; Monterey, CA; August 1-2, 1994

This proposal seeks partial support for a nonprofit workshop to be conducted solely for the benefit of researchers and practitioners in the signal processing, telecommunication, and mathematical statistics communities. Participation from individuals in academia, industry, and government will be strongly encouraged. This will be the second such workshop on cyclostationary signals, and will be organized by the PI (Stephan V. Schell) and Dr. Chad M. Spooner of Mission Research Corporation. It is organized partially in response to the consensus among attendees of the 1992 workshop that another workshop should be held, and partially in response to continued interest in the theory and applications of cyclostationary signals among researchers and practitioners in academia, industry, and government. NSF support of this workshop would be used exclusively to encourage recent Ph.D.'s and graduate students working in the field to attend the workshop. This encouragement would be accomplished by providing an offset to the travel expenses incurred by these participants.